Implementation of an Advanced Seismic Processing System on the SDSC CRAY X-MP/48

The purpose of this project is to establish a research seismic processing facility on the San Diego Super-computer Center (SDSC) Cray X-MP/48. The system will be available for remote processing to all geophysical and geological researchers with access to the SDSC. The PI plan to convert and significantly enhance the Scripps basic marine seismic processing package by adding the advanced processing techniques of depth migration and cylinrical wave slant stack. The wide accessibility of the SDSC facility will afford researchers and students computing capabilities from remote sites that are presently available only at the largest commercial geological/geophysical centers. The power of the supercomputer will also enable advanced, computationally intensive seismic processes such as migration, statics and slant stacks to be performed orders of magnitude more rapidly than allowed by specialized seismic computer systems. The supercomputer speed will facilitate new processing techniques that are not practical on smaller computers. The PI will hold training courses in the use of the SDSC seismic processing system.